Dissecting the Cytoskeletal Machinery

This starter grant award to Stanford University supports the research of Professor Thomas J. Wandless. The research focuses on two elements of the cytoskeleton of cells: gamma-tubulin, a protein implicated in microtubule nucleation, and FtsZ, a bacterial protein essential for bacterial cell division. The research undertakes the expression and purification of gamma-tubulin, the investigation of gamma-tubulin as a biologically-relevant receptor for the antimitotic anticancer drugs, the determination of whether gamma-tubulin is able to nucleate microtuble formation in vitro, and the analysis of FtsZ as a possible receptor for antimitotic drugs as well as a structural model for the tubulin family. The research will advance the fundamental understanding of eukaryotic cytoskeletal structure and function and may point to new strategies for the treatment of human disease.